Developing a Reactive Geocomposite to Remediate Contaminated, Subaqueous Sediments

This goal of this research project is to develop a new geocomposite overlay to contain and remediate contaminated, subaqueous sediments. The existing state of practice to treat such sediments is either subaqueous capping with clean sediments, or removal of the sediment for ex situ treatment and/or storage. The geosynthetic-based, reactive cap to be developed will provide the same isolation as that of traditional caps, but will also: provide a remediation layer that will absorb and effectively neutralize target contaminants; block resuspension of fine dediment particles; and serve as a stable, protective foundation material. After prototype geocomposite designs have been developed, a bench-scale testing series will use an existing large-scale consolidation device to assess each geocomposite's filtering interactions and remediation effectiveness. Tests using three soils of different grain sizes and two contaminants will indicate the amount of remediation, contaminant/particle resuspension, and limitations of the geocomposite with regard to long-term performance. The geocomposite's remediation process will be analytically modeled using the test results and existing data on subaqueous sediments. The research will show the feasibility of this concept at the bench scale, and serve as a basis for field scale implementation and modeling.